UNM High Speed Connection to the vBNS

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in computational biology, computational chemistry, materials science, distributed high performance computing, the Long Term Environmental Research (LTER) Program, and visual programming environments. Collaborating institutions include most of the Internet 2 institutions, as well as the Pittsburgh Supercomputing Center, National Center for Supercomputing Applications, and the National Center for Atmospheric Research.